Acquisition of Instrumentation for Oregon State University: Mass Spectrometers for Ocean Change Research

The PI's request funding to purchase a gas source isotope ratio mass spectrometer (GS-IRMS) with dual-inlet and continuous flow inlet capabilities. This will replace an obsolete and failing (20-year old) stable gas-source isotope ratio mass spectrometer (GS-IRMS). The new IRMS will reside in the Stable Isotope Laboratory in the College of Oceanic and Atmospheric Sciences (COAS) at Oregon State University. This is a unique facility in the State of Oregon, and has developed a regional, national, and international reputation as leaders in the areas of elemental and isotopic measurement.

Broader Impacts:

OSU has an excellent record of strength in education and a wide diversity of users including minorities. The instrument will be employed widely in many fields of marine and related science. The instrumentation requested will be part of a general use facility within the college of ocean and atmospheric sciences at Oregon State University. This facility has an excellent record of incorporating advanced analytical technology into curriculum allowing both undergraduate and graduate students to benefit from the new instrumentation.